A Computer-Based Pulse-Height Analyzer and Counting Elec- tronics for Undergraduate Instruction in Physics

The physics department at Cornell College will acquire instruments and apparatus for computer-based data acquisition and analysis to modernize the laboratory curriculum for physics majors. The instruments will: o Replace a worn-out pulse-height analyzer from the 1960's with a computer-based system with a plug-in analyzer board. o Replace some nuclear pulse electronics modules with new ones having increased capabilities. The new circuits will be used to introduce an experiment measuring the lifetime of cosmic-ray produced muons. In this experiment, as in several others, the computer acting as a pulse-height analyzer will be helpful in data reduction. o Add a general-purpose laboratory computer with a high-speed analog/digital interface, a plotter, diskette storage of data, and software for data reduction and preparation of graphs. This laboratory computer will have immediate application with experiments in acoustic resonance with transient excitation and fast Fourier transform analysis of audio frequency signals, data logging in quantitative measurements of optical diffraction patterns, and data logging with an infrared spectrometer.